III-Core: Discovering and Exploring Patterns in Subspaces

High-throughput experimental methods have revolutionized scientific
inquiry. In contrast to the hypothesis-driven scientific method,
data-driven science seeks to discover and explore hypotheses supported
by the huge volume of data generated in high-throughput experiments.
Such datasets are large and high-dimensional: they consist of a
multitude of samples and many measured attributes for each sample. A
typical hypothesis corresponds to a subspace of this dataset: a subset
of samples that share similar values on a subset of attributes.

The goal of this project is to develop a series of new data mining
methods that can effectively discover these subspaces, the embedded
patterns among the values, and the relationships between patterns. The
underlying problems are highly combinatorial and efficient algorithms
are required to enable users to mine and explore subspace patterns in
large and complex datasets. The proposed methods combine the advantages
of efficient matrix decomposition, effective sampling techniques, and
advanced graph algorithms. Solutions to these research problems will be
integrated into an interactive and visual interface to explore subspace
patterns mined from experimental data.

While the proposed methods are applicable across a wide range of
domains, the focus of project is the analysis of gene regulatory
networks and the analysis of protein structure, in collaboration
respectively with geneticists and pharmacologists.

Current progress and results are accessible and continuously updated at
http://compgen.unc.edu/deps/